Acquisition of Equipment to Facilitate the Development of Comparative Physiology

The Natural Science Department is modernizing and strengthening the experimental biology curricula. Recent developments include the establishment of a new Comparative Physiology course as a component of several experimental and medically oriented undergraduate programs. Fulfillment of the teaching and research goals of the university through these programs depend on significant expansion of existing facilities. This project provides instruments including osmometers, a benchtop pH meter and microelectrode, a portable pH meter and dissolved oxygen/BOD Probe, a 10- g digital microbalance, a digital humidity/temperature meter, and a Ward's Physiogrip Muscle Physiology System and square-wave stimulator. New analytical techniques and experimental approaches are being incorporated into several interacting courses within the biology programs and developed through planned collaborations with faculty at other institutions.